The TALENT-21 STEM Undergraduate Program

The TALENT-21 STEM Undergraduate Program is a comprehensive system at North Carolina A&T State University that implements research-driven, evidence-based strategies to increase access to and enhance quality of science, technology, engineering, and mathematics (STEM) undergraduate education. The specific goals of the TALENT-21 Program are (1) Enhance teaching and learning in STEM; (2) Increase success in STEM degree programs; (3) Expand STEM participation through interdisciplinary program development; and (4) Broaden STEM research opportunities and participation.

Intellectual merit: The TALENT-21 STEM Undergraduate Program will address science and mathematics teaching and learning issues, particularly for 1st and 2nd year STEM students, with structured student academic development programs and faculty development to enhance science and mathematics teaching. Participation in STEM will be enhanced through interdisciplinary programs of learning. The TALENT-21 STEM Undergraduate Program will stimulate growth and development by bridging the social sciences with the life, physical, and engineering sciences for a new population of STEM-enhanced social scientist.

Broader impacts: The TALENT-21 STEM Undergraduate Program will facilitate research growth for faculty by contributing to research professional development and by promoting interdisciplinary and collaborative research venues, particularly in geosciences, computational sciences, biomedical sciences, and neurosciences. The project will also devise academic program concentrations in interdisciplinary general engineering and interdisciplinary general science that offer solid science and technological development for individuals who would legitimately be able to participate in and contribute to the science and technology enterprise but who may work in non-science and non-engineering careers.